Electrode Surface Structure

In this research project, supported by the Analytical and Surface Chemistry Program, Professor Arthur Hubbard and his students at the University of Cincinnati will measure the detailed angular distributions of emitted Auger electrons for a variety of well characterized surfaces with atomic and molecular overlayers. These angular distributions will be carefully compared with the distributions predicted based on competing models of the electron emission process, in order to develop a method for extracting surface structural information from the angular distributions. Surface structural information for overlayers on electrode surfaces will enable a detailed understanding of the electrochemistry occurring at these interdaces. Electrochemistry is important in an enormous number of technological applications, ranging from sensors to batteries. In order to understand the chemistry which occurs at the electrode surface in these wide ranging electrochemical applications, one must know the structure of the electrode and any atomic or molecular overlayers associated with it. This research project is designed to develop a method for structural analysis of these overlayers based on the measurement of the angular distribution of electrons emitted from these surfaces.